Computation-Enhanced Science Learning (CESL): ScienceWorks as Technological Scaffolding for Model Creation

9353481 Soloway At the heart of a working science literacy is the ability to create models that explain real-world phenomena. However, constructing, simulating, and validating models poses a serious challenge for students. Just as professional computational scientists rely on technology in their model creation activities, we propose developing a Computation-Enhanced Science Learning (CESL) educational approach that provides comparable technological support for students and teachers. ScienceWorks, the technological component of CESL, will provide scaffolded, computational modeling tools that enable students to create computational models; this activity should lead to a deep understanding of the science phenomena. The disposition to then see scientific phenomena as analyzable systems should also develop as students gain expertise over successive investigations. ScienceWorks will afford students access to a broad range of functionality, e.g., video simulations, data visualization representations; the actual computations will be carried out by off-the-shelf, professional software mediated through ScienceWorks' open architecture. CESL/ScienceWorks will be used on a daily basis at a public high school; additionally, an informal network of ScienceWorks-using schools will be supported over the Internet. A longitudinal assessment will be conducted to determine the impact that CESL/ScienceWorks has on student's learning of science content and science process; transfer ability will also be assessed. Findings from this effort should provide guidelines for the development of next-generation, educationally-sensitive software. ***